Oceanographic Instrumentation

9617410 Willis This award to Oregon State University will provide a echosounder with subbottom profiling capability and an ion chromatograph for study of seawater chemistry for use on R/V Wecoma, a research vessel operated by Oregon State University as part of the University National Oceanographic Laboratory System research fleet. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the Northeast Pacific Ocean, in 1997 and in future years. ***